Atmospheric Boundary Layer Measurements on the Weddell Sea Drifting Station

The proposed work is part of an integrated research program into the oceanographic structure of the western Weddell Sea. It is to be carried out from an ice camp jointly occupied by U.S. and USSR scientists from February to June 1992. This project concerns the determination of the energy exchange between the sea ice cover and the atmospheric boundary layer. The objectives are to measure time series of the individual components of the sea ice/atmosphere energy budget for the duration of the drift, and to determine the bulk transfer coefficients for the exchange of momentum and sensible and latent heat. The purpose of the measurements is to expand our capability for numerical and analytical modelling of the antarctic environment. Turbulent fluctuations in the temperature, wind, and humidity fields will be measured directly with small, fast-responding sensors. These observations will be complemented by other synoptic meteorological data and with upper air soundings.